Interdisciplinary Lively Applications Project

9455980 Giordano A Consortium of schools committed to the use of interdisciplinary projects throughout their undergraduate programs in mathematics, science, engineering and technology is being developed. The Consortium is planning to produce interdisciplinary application projects which weld mathematics with the concepts of coequal disciplines, to promote curricular reorganization focusing on student growth in modeling and problem solving, and to promote faculty growth through engaging them in such developmental activities.